SBIR Phase I: A Digital Design-Delivery System for the Large-scale Deployment of Mass Timber Building Technologies

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is to democratize mass timber systems, rendering them accessible across the architecture, engineering, and construction (AEC) industry. Buildings account for 40% of all greenhouse gas emissions, indicating an urgent need for energy-intelligent building prototypes. Mass timber buildings require less energy for production than competitive technologies and were approved in 2019 by the International Building Code for structures of up to 18 stories in the US. Yet, they remain inaccessible as a technology, in part because developers, architects and manufacturers remain unfamiliar with mass timber and its benefits. This proposal seeks to unlock a latent market of development potential on sites to which mass timber offers unique advantages. Because our technology integrates adaptable-to-site building solutions into the industry's supply chain, it is designed to improve adoption by reducing risks, barriers, and costs usually associated with innovative technologies. By giving designers, engineers, and builders access to cutting-edge mass timber building systems, our proposal aims to encourage the use of a sustainable and profitable technology for the rapid urbanization of North American cities.

This Small Business Innovation Research (SBIR) Phase I project will focus on developing adaptable mass timber building solutions that are replicable and commercializable. This will be achieved by designing a variety of rigorously tested and cost-effective building solutions in mass timber and developing a generative design system that can generate and deploy optimal building proposals using these pre-designed building solutions. The first component of our technology comprises the development of pre-approved structural building solutions across a range of building scales (3-18 stories) and mass-timber technologies, including novel hybrid structural solutions developed with support from manufacturers and engineers. The second component the generative system will handle different development scenarios from large urban blocks to small urban infill sites. The tool will generate a wide variety of potential compliant options, analyze and test these for user-specified performance metrics, and sort among them to find a best-case building proposal. The tool will incorporate the structural solutions developed in the first component of the work and deploy them within their constraints to test real-world building solutions against the constraints of each development project. The tool will also seamlessly integrate with existing BIM (Building Information Modeling) project-delivery platforms for easy interoperability.